Research Initiation: Partitioning and Transport of Fluids in Microporous Membranes: Computer Simulation and Theoret- ical Studies

Hindered transport of fluids in pores of molecular dimensions, and equilibrium partitioning of the fluid components between a bulk external phase and microporous membranes are being investigated. Computer Simulation of model systems via grand canonical ensemble Monte Carlo and molecular dynamics techniques and theoretical studies in statistical mechanics and kinetic theory are used to clarify the mechanisms involved when transport partitioning of fluids in micropores cannot be treated by conventional hydrodynamics or continuum formulations. In particular, the influence of fluid particle/pore wall and fluid particle/fluid particle specific interactions at different temperatures and densities are investigated. Furthermore, membrane models, with pore structures characteristic of many real porous media employed in chemical practice, are used to delineate the influence of pore structure on these processes.